Hiram Summer Scholars

Hiram Summer Scholars is a three-week summer educational enrichment program to promote excellence in the natural sciences, mathematics, problem solving and computer science in upper elementary and middle school classrooms throughout the Hiram, Ohio region. In each of two summers forty teachers will choose among five three-week sessions taught by Hiram College science and mathematics department faculty for which they will receive academic credit. During the middle week of the program, 100 disadvantaged students from the participants schools will take part in model classrooms taught by the participants with funds made available as cost-sharing the indirect cost from this grant. During the academic year, participants will have three further meetings as well as access to the campus facilities which include an observatory and biology field station. Hiram College faculty will visit participant's classrooms as guest lecturers and to assist in sharing new information.